Mathematical Sciences: Research Support for Differential Geometry

9403533 Vitter The proposal coverss group activity in the general area of mathematical physics, topology and complex geometry. Specifics include foliations of Monge-Ampere type, group actions on spheres and the geometry of vector bundles over Grassmannians. These topics are important in modern mathematical physics including soliton theory. ***